EMSW21-MCTP: Penn State MASS Program

Penn State's MASS program (Mathematics Advanced Study
Semesters) is an intensive, semester-long activity for
undergraduates recruited from around the country, which is
integrated with a summer undergraduate research activity.
MASS is designed to provide a unique and mutually
reinforcing blend of learning and research activities for
its participants. Its goal is to guarantee the successful
transition of its participants from undergraduate to
graduate study in mathematics.

The main components of MASS are: three custom-designed core
courses in topics chosen from algebra, analysis and
geometry; individual student research projects; the MASS
colloquium - a weekly lecture series by visiting
mathematicians and occasionally distinguished Penn State
faculty; and a weekly two-hour interdisciplinary seminar run
by the director of the MASS program. MASS participants
acquire the experience and confidence they need to succeed
in graduate school. In this way MASS program will increase
the number of students destined for careers in mathematics.

The present project will support the operation of the MASS
program for a five year period, and will incorporate the
following new elements: the program's size will be expanded
and the program will target talented students not previously
committed to mathematics with attractive support packages.